Initial Development of an Interdisciplinary Data Base for Evaluation of Volcanism-Climate Linkages

Abstract ATM-9619873 Zielinski, Gregory University of New Hampshire Title: Initial Development of an Interdisciplinary Data Base for the Evaluation of Volcanism-Climate Linkages To reliably assess the impact of volcanism on the atmosphere and specifically on climate change over annual to decadal time frames requires the compilation of appropriate information on the global distribution of volcanic aerosols, the resulting optical depth of those aerosols, and evidence of the climatic impact of the eruptive products. Attaining this goal requires the establishment of a data base that can resolve these parameters. Several different sources are able to provide this type of information including: ice core records of volcanism, tree ring records of the climatic impact of volcanism, geologic deposits and records of atmospheric phenomena related to the atmospheric loading of aerosols. This SGER award supports the initial development of a multiparameter data base to include information from all of these sources thereby providing a thorough compilation of the climate forcing capabilities of volcanism.